NCSA/Jackson State Collaborative Project: Visualization in the MS DOS Environment

This award supports a continuation of the collaboration between the National Center for Supercomputing Applications (NCSA) and Jackson State University. These institutions are developing scientific visualization tool sets specifically in the IBM Pc MS- DOS environment. These tools fill pressing needs in the area of scientific visualization and advance the state of the art tools available to many users. All software, source code and documentation will be available for dissemination and widespread use.